Eqatorial Pacific JGOFS Coring

This effort will provide the overall management for a US JGOFS Equatorial Pacific Process Study to be conducted during the Spring and Fall of 1992. In addition, certain scientific services necessary for the completion of the project will be provided: ship use, hydrography, analysis of doppler current meter data, acquisition and archiving of satellite imagery, site mapping and sediment coring. These services do not stand alone as scientific research efforts, but are necessary to participating investigators and have been identified as critical to the success of the overall experiment by the US JGOFS Steering Committee. The US JGOFS Rational and Plan for Equatorial Pacific Process Studies, provides the overall scientific rationale and justification for an equatorial Pacific process study; it also describes the conceptual plan and experimental strategy that has been endorsed by the US JGOFS Steering Committee and the scientists who want to take part in the study.